High Resolution Reconstruction of Arabian Sea Denitrification and Its Forcing by Productivity and Hydrography

The ESH project will study the changes in denitrification of the Arabian Sea over the last glacial cycle at a resolution of a few hundred years. Both regional productivity and hydrographic conditions contribute to the suboxic intermediate waters necessary for denitrification. The project will study a set of cores from the Oman margin transecting the modern range of suboxic waters, concentrating on times of rapid global climate change. Variables to be analyzed include 15 N/14 N of sediment organic matter, carbon and oxygen isotopes of foraminiera, abundance of planktic foraminifera indicative of upwelling and of oxidation state of the intermediate waters, and Ba flux as a second measure of production.